Development of a Synchrotron X-ray Area Detector

A high performance data collection system for x-ray crystallography has been implemented, although it has not reached a final stage of development. Current work will involve x-ray crystallographic data collection on intact gap junctions, intact invertebrate muscle, collagen structure and relaxed and rigor muscle, topomyosin, lysozyme, TMV protein disk aggregated, fibrinogen, polyoma minichromosomes, and incoherent scattering from protein crystals. In addition, the equipment and experience used in building this tv detector will be used to develop an area detector for synchrotron radiation, initially for use at Brookhaven National Lab's National Syncrotron Light Source (NSLS). The detector system will make possible a substantial improvement in the rate of data collection and in the accuracy of the data. Consequently, this also extends the range of experimental problems in structural biology that can be studied.